Theory of Molecular Diffusion on Surfaces and in MicroporousMaterials

This proposal is concerned with undertaking Monte Carlo simulations aided by effective medium approximately to understand molecular diffusion on surfaces and in microporous solids. In particular the effects of co-adsorbed species, surface defects and surface steps on chain molecular diffusion will be examined. The effective medium approximations are a powerful method for making such problems tractable.